Three-Dimensional Distinct Element Simulations of Dynamic Process of Fault Gouge Evolution

Brittle fault zones undergo continual wear of fault surfaces during slip, which
leads to a continuous variation in fault surface roughness and a progressive increase in
the thickness of the fault gouge zone with net slip. The dynamic changes in gouge zone
features may affect fault frictional strength, stability, and earthquake characteristics.
Although previous field, laboratory, and numerical studies have made significant
progress in investigating the geometrical and physical properties of fault gouge zones and
their effects on fault zone frictional and mechanical behavior, these results still provide
limited understanding of the complete process of gouge zone development under a wide
range of geological settings, and how these materials might affect the earthquake cycle.
Recent modifications to the Distinct Element Method (DEM), including addition
of interparticle bonding and breakage, allows us to model the fracture process of cohesive
rocks, and makes it possible to directly observe gouge accumulation and modification,
mimicking natural fault zone deformation. 2-D DEM simulations of gouge evolution
have successfully reproduced many observations in the field and laboratory, yielding
interesting findings that have not been reported in previous gouge zone studies. These
include stages of gouge zone development and their dependence on shear displacement,
normal stress, and rock strength. These encouraging results suggest the feasibility,
necessity, and importance of improving numerical models and extending the current
studies into the future.
This proposal describes a program to simulate the dynamic processes of gouge
zone evolution, focused on constraining the relationships between gouge thickness, grain
size distribution, shear zone strength, and surface roughness. We will use much larger
assemblages that will allow a wider range of surface and particles sizes and geometries,
and conduct these simulations in parallel on the new Rice Cray XD1 supercomputer.
Results of these numerical experiments will help in interpreting observations of more
complex natural faults, leading to an improved understanding of fault zone processes.
The work will support training of a postdoctural associate, undergraduates, and provide
enhanced 3D codes of fault gouge evolution to the community. Understanding how fault zones
deform can help improve understanding of how faults slip and thus earthquake hazards.